Wave Interactions and Imaging in Random Inhomogeneous Media

Many natural and man-made media such as the atmosphere, the ocean, geophysical media, biological media, and composite and disordered materials have spatial or temporal random variations. The interaction of optical, electromagnetic, or acoustic waves with these random media greatly affects communication through the medium, as well as identification and imaging of the target in the medium, and determination of the medium characteristics. Although considerable progress has been reported on the interaction of waves with random media, several outstanding problems have emerged which are expected to lead to important engineering and scientific advances. Recent studies on the Modulation Transfer Function (MTF) of random media when combined with inverse scattering studies should lead to the improvement of image resolution and identification through practical media as well as the advance of the multiple scattering theory. The study of backscattering enhancement from disordered media and rough surfaces has attracted considerable attention from those involved in localization phenomena and may help clarify these new physical phenomena. Continued work on the utilization of the complete statistical and polarization information of waves should lead to a new imaging technique and graphic display of the medium and target. An extension of the studies on rough surface scattering to very rough surfaces and backscattering enhancement encompasses fundamental research as well as practical applications and should lead to the construction of improved or new statistical wave theories and applications.